Testing a Model of Instructional Strategies to Enhance Prekindergarten Children's Language, Literacy, and Math Skills

This proposal seeks funds to implement and evaluate a model of instructional strategies for
prekindergarten teachers in order to enhance their ability to support young childre's
learning in language, early literacy, and math. The model will be experimentally tested
across Head Start and public school educational settings and is guided by a strong body of
recent research. As the two settings have different goals for children, funding of this
proposal will provide important information on the conditions under which the model is
effective. The outcomes of this research will determine critical elements for models of
instructional approaches such as intensity and duration, teacher background characteristics,
role of mentor teachers, and the importance of including a home literacy component. The
model is based on research that has clearly established a group of key elements for
prekindergarten language/literacy programs (e.g., expressive language, vocabulary, early
reading skills). Results will answer a critical remaining question regarding how a model
of instructional strategies can support teachers to implement a comprehensive set of
teaching practices supporting language/literacy development in ways that are sensitive to
the broadest range of social, emotional, and cognitive needs of young children.